Analytic aspects of L-functions and their applications

DMS-0245258
Luo, Wenzhi

Abstract

Title: Analytic aspects of L-functions and their applications

This proposal is primarily concerned with the analytic aspects of
automorphic forms and automorphic L-functions related to the
Ramanujan-Selberg conjecture for GL(n) and the quantum unique ergodicity on
arithmetic groups, from the perspectives of analytic number theory.

The questions addressed to in this proposal are important open questions,
the resolution of which would have profound impact on our understanding of
the complete picture of the underlying theories. Motivated by recent advance,
the goal of the present projects is to make contributions to these fundamental
problems by refining current techniques and by exploring new approaches.